Meiotic recombination and chromosome pairing in Coprinus cinereus

We will determine the relative timing of genetic recombination and chromosome pairing in normal strains of the fungus Coprinus cinereus. We will ask if the presence of flanking insertion/deletion heterozygosities alters the timing or amount of exchange in the test interval. We will examine recombination in the test interval using strains that fail to complete chromosome pairing due to the presence of the rad3-1 mutation. We will also monitor the timing of genetic exchange between homologous sequences that are located at non-homologous positions in the genome. The specificity of meiotic chromosome pairing is not known. It has been suggested that some aspects of the recombination mechanism might provide this specificity, but evidence to test these models is lacking. Such models would predict that exchange should precede or occur simultaneously with pairing, but not follow pairing. Such models also predict the occurrence of mutant strains that are recombination-proficient but pairing deficient. These two predictions will be tested in the experiments proposed here. The results will provide an important framework for understanding the molecular basis of homologue recognition in meiotic prophase. All living organisms have mechanisms to ensure that their genetic information, packaged in their chromosomes is passed from one generations to the next in a faithful and orderly way. This is a proposal to resolve some important long-standing questions about the nature of these mechanisms.